Algorithms for Convex Sets

The project has three parts: Efficient algorithms for random sampling from convex sets in Euclidean space using the theory of rapidly mixing Markov chains and the applications of such algorithms. Lattice relaxations of Integer Programming problems that produce better bounding procedures and related lattice questions. Strongly polynomial time algorithms for the greatest common divisor and genealizations.